PRIDE: Photonics Research in Interdisciplinary Education

Abstract EEC-9527480 This award provides funding to Boston University for support of a Combined Research-Curriculum Development Program entitled, "PRIDE: Photonics Research in Interdisciplinary Education." The CRCD program emphasizes the need to incorporate exciting research advances in important technology areas into the upper level undergraduate and graduate engineering curricula and stimulates faculty researchers to place renewed, equal value on quality education and curriculum development. This three year program will create three levels of photonics modules to enrich standard core, specialized elective, and design courses of the upper division undergraduate and early graduate curricula. The interdisciplinary faculty team along with industry collaborators, will develop integrative learning experiences using modern research in holistic problems, requiring analysis, innovation, synthesis, and integration. Modules will be based on and demonstrated by recent photonics research, including photonic materials and devices, optical data storage, optical communications, displays and photonics systems. *** ??